CISE Research Instrumentation: Real-Time Planning and Control for Cooperative Manipulators in the Virginia Tech AI/Robotics Laboratory

This award is to purchase high-speed workstations, high- resolution cameras, digitizers, and actuator-control equipment to enhance an existing pair of industrial-quality robot arms. The equipment will support research projects in real-time collision avoidance, integration of stereo range estimation and cooperative manipulation, planning for real- time control in real environments, and planning and simulation. Virginia Polytechnic Institute will purchase equipment to support several research projects in the area of real-time control of robotic manipulation tasks. The research will center on the cooperative use of artificial intelligence techniques, machine vision, efficient world models, and hierarchical design for robust planning and control.